Workshop on Minimal Surfaces, Sub-Elliptic PDE's and Geometric Analysis

Workshop on Minimal Surfaces, Sub-Elliptic PDE's and Geometric Analysis.

The study of PDE's, harmonic analysis, and geometric analysis in the
sub-Riemannian setting has reached a critical juncture: recently,
researchers from disparate fields have made significant progress in
this area and have opened up many new avenues of research.
The conference will focus on contemporary developments in the study of
several problems from analysis and geometry in the setting of
Carnot-Carath\'eodory metrics. Most of the invited lecturers will
address a variety of interrelated topics, such as: ``best-constant''
type problems concerning Sobolev and isoperimetric inequalities; the
study of minimal and constant-curvature submanifolds; rectifiability
and geometric measure theory; quasiconformal maps and potential
theory; geometric flows and applications. Analysis in
Carnot-Carath\'eodory spaces is an important component in the general
theory of abstract, non-smooth analysis which has seen extensive
development in recent years. The conference, as envisioned by the
PI's, will foster the collaboration of different research groups and
provide a ground for discussion.

The study of systems whose dynamics is subject to physical constraints
has been a focus of attention for a long time, both from the point of
view of pure mathematics and from the point of view of engineering and
physics. Motivation for these inquiries stems from the wide variety of
applications to problems in control theory, robotic planning, the
structure of crystalline materials, image reconstruction, nonholonomic
mechanics, and others. In mathematical terms such systems are
represented by Carnot-Carath\'eodory (sub-Riemannian) spaces. These
are manifolds with a preferred set of directions at every point. These
preferred directions represent the constraints; motion is only allowed
in these directions. The study of geometry and analysis on CC spaces
is based on techniques from several mathematical disciplines: several
complex variables, contact geometry, partial differential equations,
harmonic analysis and geometric function theory. In turn, new results
in the sub-Riemannian context often yield important progress in these
areas.